A Comparative Study of the Spectra of Type Ia Supernovae

AST-0506028
David Branch
University of Oklahoma Norman Campus
A Comparative Study of the Spectra of Type Ia Supernovae
ABSTRACT
A comprehensive comparative study of the spectra of Type Ia supernovae (a critical distance
indicator on cosmological scales) will be carried out. The specific goal is a consistent quantification
of the differences among these supernovae (including reliable line identifications) to reveal the
range and distribution of their spectroscopic properties. Of particular interest is whether they form a
continuous spread of sub-types or break down into distinct subgroups. The analysis will be
performed by comparing observed supernovae spectra with the output of a parameterized supernova
spectrum synthesis code (Synow) developed at the University of Oklahoma. Secondary goals
include a similar study of Type Ic supernovae spectra, using Synow to interpret spectra of quasistellar
objects with broad absorption lines, and the further development of the online supernova
spectra/photometry database (SUSPECT).
Support and training of a graduate student is included and undergraduates will aid in the research
effort. The computer program used in the analysis (Synow) will be made available to anyone who
wishes to use it. The development and expansion of the SUSPECT online supernovae database will also
be continued. A significant component of the work to be performed is also consistent with the joint
NSF/NASA/DoE Physics of the Universe strategic plan.